Mathematical Sciences: Theory and Applications of Homo- clinic and Heteroclinic Bifurcation

The investigators continue research on homoclinic and heteroclinic bifurcation and on several important applied problems in which homoclinic and heteroclinic bifurcation theory are crucial. They continue work begun by Lin on spatially patterned solutions of reaction-diffusion wquations near spatially homogeneous solutions, represented by homoclinic orbits on heteroclinic cycles of the reaction equation. They investigate a new approach, based on earlier work, to the stability of stationary solutions of reaction-diffusion equations with small diffusion that consist of regular and transition layers, in which the stability would be checked layer by layer. They continue work begun by Schecter using heteroclinic bifurcation theory to study the solutions of systems of conservation laws. They also continue work on the stability and convergence of numerical methods for finding homoclinic and heteroclinic orbits to nonhyperbolic equilibria. It can happen that if one starts a dynamic process near one of its steady states, the resulting orbit of the process goes far from that state, then returns to the same or a different steady state. Such an orbit is called homoclinic or heteroclinic respectively. These orbits turn out to be key to understanding numerous phenomena in the sciences. The investigators continue their studies of homoclinic and heteroclinic orbits, and of mathematical aspects of them that are important in applications. One subject they investigate is how two interacting dispersed populations can spontaneously become organized into spatial patterns of varying population densities that fluctuate over time, because of homoclinic or heteroclinic orbits in the underlying dynamics. The second subject is an idea of Lin for understanding the stability of propagating fronts, in chemical reactions, for example, by viewing the fronts as heteroclinic orbits. The third subject is complicated waves that arise in solutions of equations such as those that model the recovery of oil from an underground reservoir when water is pumped in to force it out. These waves can be viewed as heteroclinic orbits. The fourth subject is the robustness and accuracy of numerical methods used to compute homoclinic and heteroclinic orbits.